Structure and Function of Troponin and Myosin

The goal of the proposed research is to describe the molecular mechanisms of calcium regulation of muscle contraction. The experimental approach will be to investigate and compare the structural and functional consequences of chemical and genetic modifications of troponin subunits and myosin light chains from vertebrate and invertebrate muscles. The homology of troponin C (TnC) and both classes of myosin light chains (MLCs) is a key feature for this comparison, since we hope to identify similarities and differences in the structures and interactions of these Ca-binding proteins which will help in understanding the mechanism of the two regulatory systems. TnC and MLCs will be investigated using the complementary techniques of group-specific chemical modification, crosslinking, labeling of Ca-binding sites and hydrophobic pockets, site-directed mutagenesis and comparative sequence analysis. Modern techniques of preparative and analytical HPLC, gas-phase protein and peptide sequencing, and computer-assisted structure prediction will be used for purifying and characterizing peptides and identifying chemically modified amino acids. The central hypothesis of the research is that comparative analyses of structurally related but functionally distinct proteins will reveal fundamental common mechanism as well as key specific differences which have led to functional specialization.